Self-healable Poly(ionic liquid)-Based Fullerenes

NON-TECHNICAL SUMMARY:
This research focuses on developing new types of smart plastics that can repair themselves when damaged. These materials will be made by combining special liquid salts with polymers and adding tiny carbon cages called fullerenes. The goal is to produce materials that can store and conduct electricity and fix themselves. The team will use a range of testing methods and computer simulations to study how plastic and carbon cages interact. By combining experimental results with simulations and artificial intelligence (AI), these studies will develop models to predict the design of sustainable self-healing materials and advanced carbon-based nanocomposites. These studies will impact broad advanced manufacturing, engineering, and science fields, enabling them to become technologically significant enterprises in electronic and other industries. The work will also advance national interests and security by strengthening domestic innovation and advanced manufacturing capabilities, while contributing to the development of critical technologies essential for US economic competitiveness and defense readiness. While the project seeks to address fundamental processes governing self-healing using electric fields, national and societal benefits include reduced reliance on scarce natural resources, independence from depleting mineral sources, and the development of lower-cost and lighter-weight composite ‘smart’ materials. Finally, this work will support the education and training of a highly qualified technical workforce supporting the US economy.

TECHNICAL SUMMARY:
Self-healable poly(ionic liquids) (PILs) containing covalently attached fullerenes (C60) will be developed, and the mechanisms governing the damage-repair cycle will be elucidated. Combining ionic and electronic conductivity into a single, precisely synthesized and polymerized PIL will facilitate the repair of mechanical damage in the absence and presence of electric fields (EFs). At the molecular level, the objective is to identify and quantify the forces responsible for inter- and intra-chain interactions involving polar and dipolar components that govern self-healing utilizing ionic and electronic conductivities. Two-dimensional (2D) spectroscopic (FTIR, NMR, nano IR imaging) and thermomechanical analyses, supported by 2D correlation spectroscopy (COS) and guided by molecular dynamics (MD) simulations and artificial intelligence (AI), will be used to elucidate the dynamics of PIL segmental motions during self-healing. Using input from multidimensional measurements and simulations will enable the development of models to predict composition-property relationships, thus guiding the discovery of new PIL- and carbon-based nanocomposites. Driven by the hypothesis that ionic and dipolar interactions can be synergistically used in the design of future generations of ion- and electron-conductive materials, these studies will advance molecular-level understanding of polymeric materials and models that predict composition-property relationships, thereby guiding new materials discoveries. Finally, this work will support the education and training of a highly qualified technical workforce supporting the US economy.